1998 AAAI Sigman Workshop

Partial funding is being awarded for the 1998 Artificial Intelligence and Manufacturing Workshop. Artificial Intelligence concepts and techniques continue to find favor - and offer even more promise - in manufacturing, and these applications and potential applications continue to provide challenging drivers for fundamental research in the field. This workshop follows another in 1996, and surveys progress, as well as problems still outstanding. The development of intelligent computer integrated design and manufacturing systems is still on the horizon, but meetings like this to evaluate the state of the art and practice and discuss particulars of needed research, the advance toward that horizon can more efficiently be undertaken.